Postdoctoral Fellowship: MSPRF: The Real and Relative Geometric Langlands Programs

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Mark Macerato is “The Real and Relative Geometric Langlands Programs”. The host institution for the fellowship is the University of Minnesota - Twin Cities and the sponsoring scientist is Tsao-Hsien Chen.